Internet Connection for the Woods Hole Research Center

9521754 Stone The Woods Hole Research Center requests support from NSF for a connection to the Internet through the WHOInet network. WHOInet is the network located in the state of Massachusetts that will provide operations and network information services. It will provide the Woods Hole Research Center with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The center needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the staff of the Woods Hole Research Center.